Engineering Research Equipment Grant: Microcalorimeter

A mirocalorimeter is acquired. It is used for the determinatio of heat of adsorption/wetting reaction in process developments in mineral, chemical and ceramic industries. Availability of this equipment will significantly improve the quality of research related to aggregation and dispersion of fine particles, sol-gel processing, and other topics.